Solar Flare Imaging Spectroscopy

The solar surface layers are characterized by numerous energetic phenomena that follow an eleven-year cycle, the so-called sunspot cycle. The next maximum in this cycle will occur in 1991. The number of sunspots and energetic erruptions is now, in 1989, already steadily increasing and building up to the maximum two years hence. The most energetic phenomena of such a cycle are called "flares." They are regions characterized by the localized buildup of strong magnetic fields, the sudden release of energy associated with these fields, acceleration of charged particles, and heating of plasma. The Principal Investigator proposes to carry out an observational project with the goal of understanding better the origin and temporal development of solar flares. In particular, he will determine the spatial and temporal distribution of energetic particle acceleration in the solar atmosphere and their effects on the structure and evolution of magnetic fields. In addition, he will study magnetic reconnection, shocks, and energy and momentum transport during the course of flare development. New and existing data will be used.